Mathematical Sciences: Algebraic K-Theory

This project is concerned with various problems in algebraic K-theory. The principal investigator will consider the K-theory of discrete valuation rings. In particular, he will study Gersten's conjecture for discrete valuation rings and related splitting phenomena. The postdoctoral associate on this project will study the K-theory of Stanley-Reisner varieties and the dimension conjecture. The research involved is in the general area of algebraic K- theory. In a broad sense, this area represents the evolution of certain concepts from linear algebra. These problems are significant in this field, as well as, algebraic geometry.